RUI: Dynamics of Skyrmion Collisions and Skyrmion Matter in 3+1 Dimensions (Physics)

This research is expected to lead to a deeper understanding of relation of conventional nuclear physics to nonperturbative QCD through studies of skyrmion scattering in 3+1 dimensions. The dynamics of the model contains a unified description of nucleons and nuclear interactions, including meson production, baryon excitation and annihilation and the possibility of a phase transition to quark matter at high energy. This research project involves undergraduates at Westmont College and provides them with experience in frontier research in nuclear physics.